Computer Aided Type Synthesis of Mechanisms

This project evolves a comprehensive, systematic procedure for type synthesis and implements the procedure on the computer, utilizing interactive computer graphics. The research also integrates expert system software into the procedure.